Very Large Scale Integrated High Throughput Rate Architectures for Systolic Array Processors

The Lease-Squares (L.S.) algorithm is the basis for many modern signal processing applications including spectral analysis, beamformation, direction finding, adaptive antenna array, equalization, Kalman filtering and parameter estimation. Triangular and linear systolic arrays are the most efficient ways to achieve high computational throughput rates for high performance real-time applications. The company is making a detailed comparison of the arithmetical complexity (number of multiples, divides, etc.) and finite precision computational effects of the triangular and linear internal and boundary systolic processing cells under Givens, fast Givens, modified fast Givens, modified Gram-Schmidt, and Householder transformations for l.s. estimation based on the QR decomposition approach. By selecting the processing algorithm with the least computational complexity, it can determine the architecture of the high throughput rate systolic array processor for VLSI fabrication. A generic (programmable) systolic array processing chip can be developed for a variety of signal processing applications. Reviewers awarded this uniformly high scores of 16, 17 and 18. They said that the research problem was precisely defined and was one of high impact. The proposal is knowledgeable, current and comprehensive. Success will lead to signal processing architectures with very high throughput rates. The personnel have excellent qualifications. This research will contribute to the design of future instruments that require a high rate of data manipulation.